Investigations on a Pressure-Swing Membrane Separation Process

The project examines a new pressure-swing membrane permeation process, which can achieve separation beyond the steady state permselectivity of membranes possessing opposite diffusivity and solubility characteristics toward a gas pair. By operating a membrane permeator under a cyclic pressure swing mode, the opposite mobility and solubility seletivities of the membrane can work synergistically to accomplish a degree of separation beyond the steady membrane permselectivity in the following manner. Along the flow direction in the feed channel, the gas mixtures is separated chromatographically by the selective adsorption of gases into the membrane; and across the membrane, the gas mixture is separated by the diffusivity selectivity of the membrane. Since all of the effluent streams are collected as products, the new process does no suffer the low productivity shortcoming of the previously proposed pressure swing membrane process. The new process condition accentuates both the solubility and the diffusivity aspects of the membrane transport mechanism. It is also particularly suitable for elucidating non-ideal membrane transport mechanisms. The mathematical model developed for this new process is very effective for the identification of complex membrane transport mechanisms.